Workshop on Strategic Manufacturing Research, Washington, D.C., October 3, 1986

A workshop will be conducted to explore a new manufacturing research initiative. The "Strategic Manufacturing Research Initiative" workshop will bring together a small group of experts in manufacturing from universities, industry, and government to exchange ideas and provide input and direction on the new initiative. The goal of the initiative is to move top priority manufacturing technology frontiers ahead in large jumps through major innovations and other means, and to improve competitiveness of the USA in manufacturing.